On the Use of Simulators for Control of Orthoses

This proposal is to develop methods for controlling a device that extends human mechanical ability. The "extender" is a sleeve that fits over the arm of an individual, and that can be controlled by weak voluntary movements. The "extender" provides amplification so that the weak signals may be used to control a powerful orthosis. The thrust of the proposal is to build a computer-driven mechanical simulator for developing algorithms for controlling the device in spite of wide variations of the characteristics of the human arm. Realistic measurement will be used to derive input-output relationship for the human arm; these measurements will then be used as reproducible representations of the living system for exploring different control algorithms. If successful, the research will have application in restoring function to some individuals with movement disorders (including partial paralysis), and in the design of human-controlled robots.